Research in Geometry and Topology

The proposal centers around 3 topics. The first is about questions in
group theory motivated by the first order predicate calculus in
logic. The questions involve e.g. understanding the sets of
homomorphisms of a fixed group into a free group that extend to
another fixed group. The second topic concerns the topology of moduli
space of curves and of the Torelli subgroup of a mapping class
group. The idea is to see if homology can be computed using a suitably
chosen Morse function on the moduli space, and on the quotient of
Teichmuller space by the Torelli group, respectively. The Morse
function is geometrically defined -- it is the systole, i.e. the
length of the shortest curve (or the homological version of this in
the case of Torelli groups). The last topic is on the quasi-isometric
rigidity of right-angled Artin groups. The subject has seen some
great advances in the last 15 years or so, but this particular class
of groups raises many issues not addressed before.

The subject of the proposal is the study of topological and geometric
properties of several objects that naturally appear in
mathematics. For example, consider the collection of all possible
"shapes" of a surface with a fixed number of holes. This collection
forms a space, called moduli space of curves. The calculation of the
"number of holes" for this space has been recently completed by a
topological tour de force. A different method for this calculation is
proposed here, one that would also give additional
information. To describe the method, consider the following
analogy. When water is slowly poured into a
normal glass, the surface of water in the glass will always be a
disk. By contrast, if water is poured into a glass with a hollow
handle, the surface of water will consist of two disks once water
reaches the handle. Thus, by examining the shape of the surface of
water we can tell if a glass has a handle or not. Topological spaces,
such as moduli space of curves, can be analyzed similarly. A
particular way of "pouring water" is proposed here.